Numerical Investigation of Saturation and Generation of Gravity Waves in the Middle Atmosphere

Project Summary Tao/ATM-9406925 The objective of this research is to develop a fully nonlinear, nonhydrostatic, compressible high resolution model and to investigate the nonlinear propagation and dissipation of gravity waves in the middle atmosphere. First studies will be on nonlinear wave-wave interactions in a two dimensional model to understand if the nonlinearity plays any role in the dissipation of gravity waves. Then, a three-dimensional model will be used to understand the importance of the nonlinearity and to investigate the possible gravity wave sources in the lower atmosphere. The results from this research may have important implications on the parameterization of gravity waves in large scale atmospheric general circulation models which are used in studies of climate changes.